Automatic Generation of Legal Expert Systems

The objective of this three-year U.S.-Yugoslav cooperative research project on legal expert systems between Konstantin Momirovic and R. Stipanovic of Zagreb University and Layman E. Allen, University of Michigan is to develop a computer expert system for privacy protection. Of particular interest is the development of system on preventive detention law and personal data protection. The models will be derived from the legal systems of the U.S., Yugoslavia and the six OECD countries. The main contributions of the proposed research will be to provide a comparative structure for cross-cultural analysis of legal rules and to continue to test the usefulness of the software in different contexts. It will also be a test of the feasibility of developing software which can assist individuals with the application of laws to specific problems. The Yugoslav and American investigators are an excellent match of expertise on computer science, common and non common law. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is supported through a joint fund consisting of matching contributions from the U.S. and Yugoslav governments. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. The award, except for funds for U.S. scientist travel, is made to the Yugoslav institution.